Engineering Research Equipment: DC/Low Frequency Device Characterization Equipment

The Department of Electrical Engineering at Southern Methodist University will purchase DC/low frequency device characterization equipment which will be dedicated to support research in engineering. The equipment will be used to support several research programs including: 1) Neural Electronics; 2) Applications of Scanning Tunneling Microscopy; 3) High Tc Superconductors; 4) Low Frequency Noise in HgCdTe Infrared Detectors; 5) Gallium Arsenide Devices; and 6) An Experimental Study of the Effects of Surface Texture on Ultra-Thin Gas Bearings.